An Agenda For Human - Computer Interaction Research: Science And Engineering Serving Human Needs

This award is to fund a workshop on research needs in human- computer interaction to be held March 4-5 at the George Washington University, Washington, D.c. The general need for high quality research in human-computer interaction (HCI) is becoming more and more evident both in industrial and academic settings. This workshop has a primary purpose to establish an agenda for research in this critical area. The workshop brings together almost two dozen of the most prominent HCI researches from the disciplines of computer science, engineering, information science, psychology and human factors along with NSF staff members. The results of the workshop is a report identifying critical research issues and potential avenues for studying them, along with necessary infrastructure recommendations related to educational, professional and facility problems. The report will be published in major distribution publications.